Growth and Protein Expression of Eukaryotic Cells

This proposal seeks to evaluate the kinetics of cell growth, and the synthesis of macromolecules in single eukaryotic cells with theoretical and experimental tools that have been developed during a previous award. These tools will continue to be developed, and will permit the mapping of the dynamic patterns of eukaryotic cell populations under a variety of environmental conditions at the single cell level. The engineering benefit of this study will be kinetic models that have a much better predictive value than conventional non-segregated models.